Collaborative Research: Composition and Evolution of the Lower Mantle: Experiments on the Thermal Equation of State of Perovskitite

Jeanloz 9527021 The PIs propose an experimental investigation of the thermal equation of state of perovskitite, the high-pressure perovskite-bearing asemblage of minerals thought to dominate the petrology of the lower mantle. The experiments will involve high-pressure, high-temperature determinations of P-V-T relations using synchrotron radiation, and the results should allow testing of models of distinct bulk composition for the earth's upper and lower mantle.